EAGER: Numerical two-dimensional fluid simulations and finite element analysis to model an adaptive and flexible microplasma discharge system.

This EArly-concept Grant for Exploratory Research (EAGER) grant will explore the effects of varying ambient conditions on microplasma discharge for accelerating the pace of microplasma discharge device-based system development. Microplasma discharge devices, which are based on non-thermal or cold plasmas, have been receiving growing interest for various applications in the food, biomedical and health care industries. The performance of the devices is dependent on a stable and uniform microplasma discharge. To maintain a uniform distribution of microplasma discharge, the devices are often operated with high input voltages along with the use of inert gases such as argon, neon, helium, xenon and nitrogen. However, the use of high voltages and inert gases are a safety hazard and prohibits the development of portable microplasma discharge devices. To overcome these limitations, the microplasma discharge devices are operated in controlled environments and specialized chambers, under stable atmospheric conditions, thus making the systems complex, bulky, non-portable and expensive. Even though novel microplasma discharge devices that operate in atmospheric air can be developed to address these drawbacks, the devices are exposed to varying ambient conditions including dynamic temperature, pressure and humidity changes. This further multiplies the challenges associated with the development of optimum microplasma discharge devices because of the changes in electron density, electron mobility and electron temperature due to the varying ambient conditions. The EAGER grant is used for developing a deep understanding of the microplasma discharge dynamics such as electron density, electron mobility and electron temperature under varying ambient conditions. The research has the potential to advance the development of adaptive control systems for microplasma discharge devices. This could have a profound technological and economic impact on the emerging flexible hybrid electronics (FHE) and wearable biomedical industries. The results obtained from this project will be disseminated through research publications in peer reviewed journals as well as in presentations at regional, national and international conferences.

The research under this EAGER grant aims to radically reduce the risk associated in developing novel microplasma discharge devices and study the microplasma discharge performance that has not been investigated before. Numerical two-dimensional fluid simulations and finite element analysis will be performed to model the microplasma dynamics of different microplasma discharge device configurations with varying electrode designs, electrode gaps and overall device dimensions, at varying ambient conditions. The results will enable optimization of the microplasma discharge device parameters for consistent electron density and electron mobility. This will facilitate uniform voltage distribution across the surface of the electrodes resulting in uniform generation of microplasma discharge. The dielectric barrier discharge and breakdown voltage analysis will be performed on the optimized electrode configuration to understand the optimum breakdown voltage required for microplasma discharge. Finite element modelling and simulations of the microplasma discharge dynamics such as electron density, electron mobility and electron temperature will be completed for varying ambient temperature, pressure and humidity. The results will be utilized to generate a detailed database that can be used for designing and fabricating novel microplasma discharge devices which can be integrated with adaptive control systems for the development of novel microplasma discharge device based systems. The fundamental breakthroughs from this research will eliminate the risks associated with optimizing microplasma discharge devices for applications such as sterilization, wound disinfection and surface treatments.